Minority Poster Session for Pittcon 2002

Drs. Sibrina Collins and Isiah Warner of Louisiana State University are supported by the Analytical and Surface Chemistry and Office of Multidisciplinary Activities Programs for support of minority students to attend a special poster session at Pittconn 2002, a major international meeting for analytical chemists in New Orleans LA March 17-22, 2002. The poster session is to be held in conjunction with a special symposium celebrating diversity in the field of analytical chemists, featuring reknown speakers from a variety of backgrounds. The requested funds are to support the travel costs of undergraduate minority students, making possible an increased attendance of minority students at this meeting.